ITR/AP Development of a Next Generation Community Code for Astrophysical Gas Dynamics

AST-0113571
J. Stone

The product of this research will be an improved general purpose solver for astrophysical gas dynamics, including magnetohydrodynamics, self-gravity, and radiative cooling effects. It will be a successor to the PI's widely used ZEUS code and will be a new generation code exploiting new hardware and software capabilities. Solvers optimized for scalar processors able to run on distributed memory parallel machines will greatly enhance the range of astrophysical problems addressable with direct numerical simulation. The project is interfaced to the graduate program of the Center for Scientific Computation and Applied Mathematical Modeling, which will allow hands on graduate training in numerical simulations for astrophysics and in use of numerical algorithms for parallel architectures.